Postdoctoral Research Fellowship in Chemistry

Ms. Jennifer Sue Brodbelt-Lustig has been awarded a Postdoctoral Research Fellowship in Chemistry. Ms. Brodbelt-Lustig's doctoral degree is from Purdue University under the supervision of Professor Graham Cooks. She intends to continue her research at the University of California at Santa Barbara under the sponsorship of Professor Michael Bowers. Ms. Brodbelt-Lustig's area of postdoctoral research is state-specific ion/molecule reactions.